The Process of Territorial Settlement: Field Experiments and Theoretical Models

Recent research has established that the characteristics of animal territories can have important implications both for the survival and breeding success of individual territory-owners and for the population ecology of the entire species. For species with seasonal territories, such as migratory birds, events during the initial period of territory- acquisition and settlement may have a strong impact on such characteristics as territory size, the extent of contact between adjacent territories, and the density of territorial individuals within the habitat. For example, the number of animals simultaneously competing for territories during the settlement period may affect territory sizes, leading to smaller territories in years when many individuals are competing for space than in years with fewer territorial contenders. Similarly, when all of the settlers arrive at one time (simultaneous settlement), territories may be smaller and more densely distributed than when the arrival of settlers is spread out over many days or weeks (sequential settlement). Despite the potential importance of settlement behaviors of territorial animals, there are very few empirical or theoretical studies of these phenomena. Dr. Stamps will investigate the process by which settlers acquire territories using three different, complementary research techniques: field experiments, theoretical modeling, and a review of the literature on settlement. Field experiments using juvenile lizards will provide controlled, empirical tests of two processes that have been hypothesized for territorial species: (1) a relationship between number of contenders and territory size, and (2) a relationship between temporal pattern of settlement (sequential versus simultaneous) and territory size. The results of these field studies, in combination with a review of the scattered literature on settlement, will be used to develop a set of general computer models of settlement. In turn, the results of these models will suggest further directions for field experimentation. These detailed studies on territorial settlement should be useful to the many ecologists amd behavioral biologists working with seasonally territorial species. In addition, this work is directly relevant to problems in conservation and the protection of endangered species, many of which defend territories on a seasonal basis.